Environmental Water Chemistry Instrumentation for Under- graduate Teaching and Research

Analytical equipment now available for chemical analysis of dissolved organics in water will be utilized as part of a new and expanded undergraduate water chemistry program. The requested additional instruments will extend the capabilities of teaching to include a broad range of inorganic chemical analyses of natural and contaminated waters. Specifically, the absorption spectrophotometer will provide analysis of major cations , minor cations, and selected trace metals, the ion chromatograph will be used for anion analyses and analytical balances for preparation of standards for gravimetric experiments. The use of field meters and filtration units will permit unique on-site instruction in which EPA protocol for field sample collection, preservation, analysis, and documentation can be learned. A new laboratory manual will be developed to instruct students on modern chemical sample collection and analyses for both inorganic and organic constituents.